GOALI: Multiscale Modeling of Adsorption Equilibrium and Dynamics in Polymer Chromatography

1064170
Neimark

This project will research critical conditions of adsorption, which allow for molecular weight-independent separation of macromolecules with respect to their chemical composition, microstructure, and topology. Novel modeling methods based on gauge cell Monte Carlo simulation, selfconsistent field theory, and stochastic Fokker-Plank diffusion equation, will be elaborated and tested for studies of polymer adsorption equilibrium and dynamics. These methods will be applied to and verified with experimental data collected at DuPont on molecular weight-independent separation of linear homopolymers and copolymers with the example of styrene-butadiene systems separated on unmodified and modified silica substrates of different pore structure in typical chromatographic binary solvents.

Adsorption of chain molecules on nanostructured surfaces and within nanoscale pores is the key mechanism of chromatographic separation and characterization of polymers, which is commonly employed in almost all branches of chemical and petroleum industries, as well as in biology and medicine. Currently, separation methods for new applications are developed by trial-and-error approaches. The main obstacle in developing new chromatographic processes is the absence of an adequate theory describing the behavior of macromolecules within confining porous medium with adsorbing surfaces, and, as the result, the lack of a fundamental understanding of the mechanism of retention and the pore structure effects, such as pore size and shape. The objective of the proposed program is to design novel molecular simulation tools capable of predicting equilibrium partitioning and dynamics of chain molecules on nanoporous substrates and to advance fundamental understanding of the physico-chemical mechanisms of retention in polymer chromatography. The success of the proposed project will enable the development of a strategic approach to guided optimization of the conditions of polymer chromatography. The novel simulation methods may find various applications in modeling of complex macromolecular systems beyond polymer chromatography. They can be extended to the problems of DNA and protein translocation through biological and solid state nanopores, biopolymer sequencing, and DNA packaging in bacretiophages. Improved understanding of the physico-chemical mechanisms of interactions of macromolecules with nanostructured and porous substrates is the key for a rational design of novel nanocomposites, polymer modification of surfaces, pharmaceutical tablets, and films.

The results of this research will have a significant transformative interdisciplinary impact since it addresses currently unresolved topical problems that are common across different chemical and biomedical technologies, and focuses on developing and testing innovative modeling tools that can be adapted and employed for simulation and optimization of various processes which involve polymer and biopolymer adsorption and diffusion on nanostructured substrates and membranes, such DNA sequencing and packaging.

The research project and minority student recruitment will be coordinated with the current NSF IGERT program on Nano-Pharmaceuticals and NSF ERC project on Structured Organic Particulate Systems (ERC-SOPS); the PI is a faculty researcher in these projects. Minority undergraduate students will be recruited through the REU initiative; the PI has an established record of supervising REU minority students. A special study module on "Polymers and Nanoparticles" will be prepared for students and teachers from K-12 attending the New Jersey Governor's School of Engineering and Technology and the Education and Training Institute facilitated by ERC-SOPS. The results of this work will be disseminated through peer reviewed publications, presentations at national and international meetings, and by creating a dedicated webpage for making project reports and presentations available for educational purposes. The novel simulation methods and case-study systems will be included into the new graduate course on "Nanoscale Thermodynamics and Transport" developed by PI for the IGERT curriculum. The students will benefit from industrial training and research facilities of DuPont Experimental Station. Guided by the industrial Co-PI, they will produce computer programs of practical relevance and get a hands-on experience in chromatographic experimentation.